Long-Term Studies of Small-Sapling Community Dynamics in Relation to Light Gaps in a Neotropical Forest

HUBBELL

The objective of this research is to conduct an annual census of
seedlings and saplings in a tropical rain forest in Panama, to monitor their
annual growth, survival, and recruitment for 5 years. We will also record
the location and dynamics of all treefall light gaps that open in the
forest, because these are the main sites for forest regeneration, where
seedling and small sapling dynamics are accelerated. The dynamics of this
forest, located on Barro Colorado Island (BCI) in the Panama Canal, has been
studied for the past two decades, but thus far seedlings and small saplings
have not been included. These new data will enable us to test alternative
hypotheses for how the more than 300 species of trees are maintained and
coexist in the BCI forest. New evidence suggests that host-specific fungal
pathogens that kill seeds and seedlings may be important agents regulating
tree diversity in the BCI forest. We will test this hypothesis and test
the strength of density-dependent regulation in the seedling and small
sapling community. We will also test the hypothesis that treefall gaps,
interacting with limited seed dispersal, limit the recruitment success of
most tree species in the BCI forest. The work is likely to have broader
significance for understanding how tropical forests in general maintain high
tree species diversity.